Project on Curriculum Development in Science, Mathematics and Technology in Industrialised Democracies

This proposal is for two international conferences to exchange information on the status of curriculum reform in science, mathematics, and technology education among industrialized nations. At least twenty nations will be involved in the OECD meetings. This proposal does not need an external merit review since it falls under NSF Manual 10, Proposal and Award Manual, Chapter 1, Sec. 122 "Use of Peer Review" subsection 122.1 "General Policy" -- c.3. waiver of peer review in "case where travel grants to either an organization and (b) awards for SEE, clarified in a recent letter from the P.I., and approved by the Assistant Director SEE. Cost Sharing Period The OECD Director and in - kind contribution equal $148 thousand.//